Laboratories in Electro-Optical Engineering and Fiber Optic Devices and Application at CSUS

This project implements a laboratory for use in two courses, Electro-Optical Engineering" and "Fiber Optic Devices and Applications." Students perform eight required experiments in each course. Experiments involving helium neon lasers, diffraction, polarization and modulation of light, and holography and spatial filtering are performed in Electro-Optical Engi- neering. Experiments in Fiber Optic Devices and Applications focus on components, such as optical fibers, diode lasers and photo detectors, and their applications in optical communication systems and sensors. Optical benches, lasers, fiber optic kits and basic measuring equipment such as power meters and an optical time domain reflectometer provide senior level undergraduates with "hands-on" experience in Optical Engineering and Design. The award is being matched with a greater amount (102 percent) by the principal investigator's institution.